Bifurcation theory and delay equations: applications to controlling pattern formation and modeling protein translation

Proposal: DMS - 0709232
PI: Silber, Mary
Institution: Northwestern University
Title: Bifurcation theory and delay equations: applications to controlling pattern formation and modeling protein translation

ABSTRACT

The proposed research addresses two applications of bifurcation theory
and delay differential equations: (1) autoadjusting feedback control
of oscillatory patterns, and (2) mathematical modeling of cellular
protein translation. The proposed research on controlling patterns
investigates an autoadjusting feedback control scheme aimed at
stabilizing oscillatory patterned-states. The feedback control method
exploits symmetries of the targeted pattern in such a way that it
becomes noninvasive when control is achieved. Two related case studies
will be pursued: (A) stabilization of traveling plane wave solutions
of the two-dimensional complex Ginzburg-Landau equation in the
Benjamin-Feir unstable regime, and (B) control of chemical traveling
wave patterns of the photo-sensitive Belousov-Zhabotinsky reaction in
the oscillatory regime. The mathematical relationship between these
two case studies will be elucidated by the proposed analysis. The
proposed research on mathematical modeling of protein translation is
aimed at deriving, by systematic approximation, a delay equation model of
protein translation that could then be used as a component in simple
models of synthetic gene networks involving more than one protein. The
delay model is obtained from a continuum description of the elongation
process, which ultimately shows up as a delay time in the reduced
mathematical model. The proposed research will extend the model to
incorporate the degradation of mRNA. The fidelity of the delay model
to the mechanistic one, in the case of simple gene switches and
oscillators will then be investigated using bifurcation theory, aided
by a numerical continuation package that was developed for delay
differential equations.

The proposed research will contribute to the training of graduate
students and postdoctoral fellows in interdisciplinary, applied
mathematics research. It will aid the development of feedback control
schemes for eliminating spatio-temporal chaos in chemical
reaction-diffusion systems, as well as other pattern-forming systems.
Delay differential equations frequently arise in the modeling of
biological processes, such as cellular protein translation, the
process whereby ribosomes assemble proteins, one amino acid at a time,
using the information encoded in the messenger RNA (mRNA). The
proposed research will contribute to the development of a systematic
mathematical framework for deriving reduced delay models from complex,
biologically-detailed mechanistic models. The proposed projects
represent important applications of delay differential equations and
their analysis using bifurcation theory. The analysis of these
proposed case studies are essential to the development of these
mathematical and computational tools.